Scattering Theory on Manifolds

The P.I. studies problems in scattering theory. Some involve
resonances, complex numbers which for many problems on noncompact
domains are natural analogs of eigenvalues. Of particular interest to
the P.I. are lower bounds on the number of resonances and the
existence of asymptotic expansions of solutions to the wave equation
in terms of resonances when there is trapping. The investigator will
also study the problem of determining the asymptotic expansion of a
perturbation of a stratified sound speed from knowledge of the
scattering matrix at fixed energy. Another problem of interest is
understanding the relationship between the sojourn times of geodesics
and the scattering matrix for manifolds with cylindrical ends.

The investigator studies questions that are related to wave
propagation. Resonances can be viewed as giving the energy and rate
of decay of waves. The P.I. studies the distribution of resonances
and their relationship to the long-time behaviour of waves. Another
area of interest to the P.I. is inverse scattering theory, which
involves recovering information about a an obstacle or perturbation
from measurements made "far away" of waves affected by the
obstacle. Taken in a broad sense, this has found many applications,
including radar, medical imaging, and underground exploration.